Teacher Inservice Program in Technological Literacy and Engineering Concepts

State University of New York at Stony Brook will conduct a three-year project to enhance 40 science teachers, 40 technology/engineering teachers, 20 mathematics teachers and 20 teacher-leaders (in the same ratio) to become more technologically literate and able to implement contextual learning experiences in their high school mathematics, science and engineering courses. The study of technological systems and related engineering concepts will provide an approach to make science and mathematics more meaningful and attractive in high school education. A tested and published "Principles of Engineering" syllabus for a one-year course using six relevant monographs of engineering case studies will be used as the main curriculum materials, supplemented by three video-based motivational and career exploration instructional packages. A teacher implementation and resource guide will be developed concurrently with the project. Teacher participants and leadership teams from sixteen states will be an integral part in generating, critiquing, testing and refining the guide edited and produced by the project staff of mathematicians, scientists, technologists, mathematics and science education specialists from SUNY Stony Brook; mathematics, science, and technology teachers from schools in New York. Fifty classroom teachers from New York in the first year , 25 from New York and 25 total from five other states in the second year will in a three-week summer workshop experience classroom presentations and participate in hands-on laboratory experiences that broaden their backgrounds in technology/engineering, applied physics, biology, and chemistry, as well as mathematical topics of algebra, trigonometry, geometry, and discrete mathematics. Both the university and school staff members will facilitate these learning activities. Pedagogical features include the teachers (a) learning how to use cooperative learning strategies in the "Principles of Engineering" course and (b) developing a constructivist approach to helping students learn mathematics, science, and technology. Five two-person leadership teams (one classroom teacher, one college/university/regional educator consultant) will join the classroom teachers for the third week of the summer workshop in each of the first two years, those ten teams joining ten new such teams from ten new states for a one- week workshop in the third summer to finish the guide and evaluation input. The regional groups of participant teachers and leadership teams will meet at the college/university of the consultant on the leadership team to conduct follow-up activities during the school year. An evaluation will monitor all program aspects including the effective use of project curriculum materials and pedagogical techniques in the classroom. SUNY at Stony Brook cost sharing accounts for 5.4% of the NSF budget contribution.